Travel Support for the 1997 IEEE International Symposium on Intelligent Control. To be held in Istanbul, Turkey July 16-18, 1997.

ECS-9709434 Kokar The goal of this project is to support a number of researchers, primarily students, from U.S. Universities, to travel to the 1997 IEEE International Symposium on Intelligent Control to be held in Istanbul, Turkey, during the period of 16-18 July, l997. The awards under this grant will be limited to those researchers who will have their papers accepted by the program committee. This grant will allow the researchers to travel to the conference and present their papers. The requested amount is $8,000. The average travel support award will be $400, which will allow to support 20 researchers. The awards will be decided by the members of the Organizing Committee of the 1997 IEEE International Symposium on Intelligent Control.